Dissertation Research: The Roots of Religious Identity and Competition in Urban Brazil

There is intense competition between three religious groups in urban Brazil: Progressive Catholics, evangelical Protestants, and folk Catholics. The former two groups have attracted so many adherents that Brazilian politicians are trying to tap them as potential supporters. This research will focus on the social bases of these three religious groups in a working-class community of Rio de Janeiro. Using a variety of anthropological methods, the student will see who joins which group, discover the reasons for the choice, and see how this affects politics in Brazil. This project is one of the first in-depth studies of Brazilian religion that focuses on the political and social aspects of membership. It will contribute to understanding the social bases of social and religious movements that have major implications for politics not only in Brazil but also throughout the developing world.